Recombinant DNA Technology For Students In Science Classes and Workshops

Lectures and "hands-on" laboratory experiences in DNA science are provided for students in general biology, microbiology, and in combined workshops for teachers and undergraduate students. Typical experiments revolve around DNA extraction, restriction enzyme analysis, separation of DNA fragments by agarose gel electrophoresis, and bacterial transformation.